Presidential Young Investigators Award

This Presidential Young Investigator Award is for the first year base amount. The project includes studies with respect to the properties of an aggregate-cement paste interface to improve the understanding of microcracking of high strength concrete; also the strength and durability of concrete.